1991 Microelectronic System Education Conference, San Jose, CA, July 22-25, 1991

The proposal requests partial funding for a 4-day Conference and Exposition on the theme "Microelectronic System Education". One of the objectives of the Conference and Exposition is to stimulate opportunities for leveraging NSF's investment in education through joint industry/ government support and discounting of hardware and software products needed for education. The principal investigator has a track record in organizing these conferences.